CAREER: QCD and String Theory

This CAREER proposal is focused on the relations between various gauge theories and
string theory, i.e. gauge/string duality. The PI will use insights coming from and inspired
by string theory to address long-standing problems in gauge theories with the eventual goal
to solve QCD.
The project is devoted to exploring the rich structures of Yang-Mills perturbation theory,
integrable structures found in the AdS/CFT context, and relations between them. The
first part of the proposal involves the study of nonperturbative Yang-Mills and AdS5 string
theory with the aim to make theoretical predictions for the experimentaly observed spectrum
of strongly interacting particles. The second part of the proposal is concerned with the
application of methods inspired by twistor string theory to the calculation of perturbative
QCD scattering amplitudes. Improvement in this area of QCD is especially urgent since
QCD processes will be the dominant physics at the Large Hadron Collider experiment which
is coming online in the near future.
The research will be integrated into outreach activities at Brown University, including
participation in the Women in Science and Engineering Program and delivery of public
lectures at local schools and science museums. The educational activities will consist of
developing new classes and establishing group meetings with graduate and undergraduate
students.